Topics in Algorithm Design

This research project examines algorithm design issues in the areas of (1) Pattern Matching, (2) DNA Sequence Assembly, (3) Data Structures, and (4) Computation of n-body Potential Fields. The proposed problems in pattern matching deal with efficient methods for the construction of suffix trees of strings and trees, treatment of ambiguous symbols with the help of suffix trees, external memory algorithms for suffix trees, and several issues related to computation of convolutions of strings. These investigations are of great significance to the broad areas of Digital Libraries and Computational Biology. With the emergence of faster DNA sequencing methods, there is an immediate need to develop better algorithms for assembling large numbers of DNA fragments. Several problems that arise in such sequence assembly are investigated. Recently, the PI developed an attractive procedure for transforming data-structure-based algorithms which have good amortized speed into ones that have matching worst-case speed characteristics. Another goal of this project is to explore the applicability of this technique to problems related to persistence of data structures and dynamic maintenance of minimum spanning trees. In addition, the PI developed the concept of a well-separated pair decomposition of points in d-dimensional space. For a set P of n-points, this consists of a binary tree whose leaves are in P, with internal nodes corresponding to subsets of P in the natural way, and a list of pairs of nodes, such that the sets corresponding to each node are geometrically separated by appropriate distance, and each distinct pair of points is `covered` by exactly one of the pairs of the nodes. The PI had made use of this decomposition in designing efficient algorithms for n-body potential field computations and several related problems. These techniques are extended to other problems.